Analyzing Student Achievement in Statewide, Urban, and Rural Systemic Initiatives

Five study questions will guide the activities of the research team:
1 - to what extent can the student assessment data be appropriately linked across reform sites?
2 - What types of linking strategies are appropriate in which of the sites to improve the comparability of reform outcomes?
3 - How can information on the process drivers, saturation and alignment be combined across sites to support meaningful inferences?
4 - Given the data already available in the data sets and the data to be gathered from the sites, what statistical methods can support inferences about "causality" from the sites, what statistical methods can support inferences about "casuality" from covariation among reform activities and swubsequent student assessment results?
5 - How should future reform efforts be structured and reported to facilitate improved inferences both within and across reform sites?